The Making of Colonial Culture in North Sumatra

The Making of Colonial Culture in North Sumatra: This award recommendation is made under the U.S.-Industrialized Countries Program for the Exchange of Scientists and Engineers, 1987/1988 Competition. The program is designed to enable U.S. scientists and engineers to conduct long-term research at research institutions in the industrialized countries of Western Europe as well as Japan, Australia, and New Zealand. Exchange awards provide unique or complementary facilities, expertise and experimental conditions in foreign countries. Awards are selected on the basis of scientific criteria relevant to his/her field of science, the prospective potential of the applicants for professional growth, as well as criteria relevant to the furthering of international cooperation in science and engineering. The program is particularly directed to scientists and engineers who are embarking on their research careers. This research project will explore the nature of the colonial communities and their internal divisions through an ethnographic reconstruction of one such community, namely that of the Dutch East Indies' Sumatran plantation belt. Through interviews with former members of the planter and government administrations now living in the Netherlands, Belgium and France, combined with archival research, the project will examine some of the social and economic commonalities and antagonisms out of which they emerged. The project is under the direction of Dr. Ann L. Stoler, Assistant Professor, Department of Anthropology, University of Wisconsin, Madison, WI 53706 and Professor Klass W. van der Veen, Chairman, Department of South and Southeast Asian Studies, University of Amsterdam, The Netherlands. This award recommendation provides funds to cover, as appropriate, international travel, local travel abroad, stipend, dependents allowance, if applicable, language training, if required, and a flat administrative allowance of $250 for the U.S. home institution.